Laboratory Improvement Via The Incorporation Of Fourier Transform NMR Spectroscopy

The project will purchase a state-of-the-art Fourier Transform Nuclear Magnetic Resonance Spectrometer (FT-NMR) to provide rapid characterization and identification of compounds encountered by La Salle University chemistry students in the course of their research and study. Chemistry majors will gain insights into FT-NMR theory in Advanced Quantitative (Instrumental) Analysis and Physical Chemistry. Structure elucidation methods in NMR spectroscopy (particularly C-13 NMR) will be introduced in Organic Chemistry, and effectively integrated into laboratories in Advanced Inorganic and Physical Chemistry. The instrument will be used routinely in Advanced Organic Laboratory Methods. The capacity of students to understand modern NMR methods and their improved preparation for graduate school and for positions in industry will be evidence of the successful outcome of this project.